Support for Student Travel and Publication of Proceedings for Tornado Symposium III, in Honor of Ted Fujita, to be held April 2-5, 1991, Norman, OK

The object of this work is to provide some travel and subsistence for about 30 students, both undergraduate and graduate, which will enable them to attend the Tornado Symposium at the University of Oklahoma in Norman, 2-5 April 1991.